Dating of Early Hominid Sites by the Racemization and Accelerator Mass Spectrometry of Protein Amino Acids in Ostrich Eggshells

The eggshells of the African Ostrich (Struthio camelus) are frequently found in association with cultural remains in sites throughout Africa, the Near East and Asia. Proteinaceous material involved in secretion of the calcite matrix of the eggshells is retained with almost no loss over time spans in excess of 100,000 years, despite nearly complete hydrolysis into the constituent amino acids. Laboratory simulation of extreme- leaching environments confirms that effectively no leaching of amino acids from the eggshells occurs. Ostrich eggshells thus offer the closest approximation to a perfect closed system of any material yet studied. The method has potential to provide chronological control for the critical period in hominid development beyond the range of radiocarbon dating back to approximately 200,000 years or more. The PI will evaluate the isoleucine epimerization reaction in ostrich eggshells by measuring D/L ratios in eggshell from stratified sites and in independently-dated material, as well as in a series of elevated- temperature experiments, and will use these data to refine a computer-simulation of non-linear epimerization kinetics. The construction of a reliable model to convert D/L ratios into absolute age, and the development of a rapid procedure for the isolation of milligram quantities of amino acids from carbonate fossils will provide significant improvements in the dating of Old World hominid sites.